Completing the Curriculum: Modular Manufacturing Education Model for Advanced Manufacturing Education

This project addresses the need to produce a highly skilled, technically competent workforce to meet the technological, communication, and teamwork requirements that local, regional, national, and global economies are demanding. The objective is to complete the final 39 modules of a curriculum begun in 1995 that will be a model modularized curriculum for the Associate in Applied Science degree in Manufacturing Engineering Technology. The advantage of the modular structure is that students benefit from learning by hands-on experience, solving problems, using communication skills, and practicing teamwork as they learn technical skills. Activities focus on creating and pilot testing modules in nine cluster areas-Science; Math; Humanities, Communication, and Teamwork; and six manufacturing oriented clusters. To develop the modules and reach the target audiences, Sinclair Community College, a public two-year college in Dayton, Ohio, is partnering with the University of Dayton, a private, four-year institution.